Controlled Recovery in Distributed Systems

Proposal Number CCR-9901391
Controlled Recovery in Distributed Systems
PI: Sukumar Ghosh

A distributed system traditionally consists of a set of
interconnected processes that do not share a global memory.
Communication among processes is either through locally shared
memory, or through messages that propagate along the links joining pairs
of processes. In many applications, a distributed system is required to
stage a spontaneous run-time recovery from failures of an unforeseen nature,
or from environmental perturbations. The design of such systems, known as
self-stabilizing systems or simply stabilizing systems, has been
extensively studied in recent years.

A major weakness in current stabilizing distributed systems is their
inability to correlate the recovery time with the extent of failure. A
second concern is the potential of non-faulty processes being contaminated
during the recovery phase, a problem that may have alarming consequences
with the rapid proliferation of large distributed systems. This motivates
the study of controlled recovery in distributed systems, where control
implies that certain performance constraints are satisfied during recovery.
The study of controlled recovery will lead to a better understanding
of the design of safety-critical systems. In addition to studying
the algorithmic foundations of the design of such systems, applications
in the areas of multimedia data routing and ad-hoc networks of mobile
nodes will be examined.